The Introduction of a Gas Chromatograph/Mass Spectrometer into the Chemistry Curriculum to Strengthen Laboratory Instruction

A Gas Chromatograph/Mass Spectrometer with an interfaced computer-based data station is being used by the Chemistry Department at Lebanon College in the following activities: 1. A qualitative organic analysis experiment during the first semester of organic chemistry. 2. Measurement of reaction kinetics, determination of isotope exchange, and the determination of the fatty acid composition of natural fats in the second semester of organic chemistry. 3. Demonstrating the principles of operation, and the analytical applications of GC/MS in an instrumental analysis course. 4. Independent study, undergraduate summer research, and an annual summer chemistry program for advanced high school students.